Gaseous Electronics Conference; Madison, Wisconsin; October 5-9, 1997

Support is provided for students and postdoctorals to attend the Gaseous Electronics Conference in Madison, Wisconsin, October 5-9, 1997.